Astrophysical Implications of Particle Unification

Research in theoretical physics will explore the implications of unification models of elementary particle physics for astrophysics and cosmology. Empirical evidence shows that there is considerable non-luminous, or "dark" matter in the universe. Preliminary work completed on hypothesized self-interacting dark matter indicates that this new type of dark matter has properties intermediate between the conventional "hot" and "cold" dark matter categories. Thus it may represent an improvement over conventional dark matter candidates while still satisfying the constraints imposed by primordial nucleosynthesis, velocities in galactic halos, and observations of the diffuse extragalactic background radiation in the soft x-ray region. This project will perform a more detailed analysis of this type of dark matter. Since the nature of the dark matter is one of the outstanding puzzles in astrophysics, investigations of various possible types of dark matter are very important.